FASEB Summer Research Conference: Somatic Cell Genetics, July 6-10, 1987, Saxtons River, Vermont

This application seeks partial funding for a FASEB Summer Research Conference on Somatic Cell Genetics to be held July 6-10 in Saxtons River, Vermont. The goal of this conference is to bring together somatic cell geneticists and molecular, developmental and cell biologists who utilize somatic cell genetics in their work. Recent progress on a broad range of central questions in biology has involved the use of somatic cell genetics. The FASEB Summer Research Conference has been the only meeting of its type explicitly focused on somatic cell genetics. The organization of the conference is intended to draw together investigators from the broad range of disciplines which are directly touched by somatic cell genetics. Thus, many areas of biology will be covered and scientists who would not normally be at the same meeting will have a chance to communicate.